Virtual Environment Interfaces to Physical Environments: A Tool for Cooperative Research in Experimental Robotics

The goal is to develop a computer system to support geographically separated researchers performing cooperative experimental research in robotics. This system uses vision techniques under the control of smart planners to acquire a visual model (combining 3-D data and texture maps) of the physical environment where the experiment takes place. It provides real-time graphic renderings of the experiments on the researchers' graphic workstations along individually selected viewpoints. Hence, each researcher is able to OBSERVE the experiments using his/her own controllable virtual camera. The initial exploration will focus on one major component of the envisioned system, the automatic construction of a 3-D model of an experimental robotic site. This will be used to analyze basic issues that will also be encountered in the other components of the envisioned system, in particular the effect of uncertainty on the interaction between a user and a remote experimental site. This is a collaborative effort between R. Bajcsy of the GRASP laboratory at the University of Pennsylvania and J. C. Latombe at Stanford University.